Theoretical and Petrologic Constraints on the Aqueous Mobility of Platinum Group Elements

The growing evidence of hydrothermal processes in layered mafic intrusives (LMI) has brought to the forefront the question of aqueous transport of platinum-group elements (PGE). We propose to pursue an integrated theoretical and petrologic study of PGE mobility in hydrothermal solutions. An internally consistent set of thermodynamic data for aqueous PGE ions and complexes will be developed using recent advances in theoretical geochemistry. These data will be employed in calculations to establish the speciation of PGE in solution, and solubility of platinum-group minerals (PGM) over a large range of geologic conditions. Mass transfer calculations will allow incorporation of petrologic constraints, together with thermodynamic data, in order to identify which factors control PGM dissolution and reprecipitation during hydrothermal events associated with LMI. Petrologic constraints will be drawn from concurrent research on the Duluth Complex in Dr. Pasteris' lab, ongoing research by Dennis Bird on the Skaergaard Intrusive, and literature reports on the Bushveld and Stillwater Complexes. Expected results include: predicted dissociation constants for PGE-complexes of chloride, hydroxide, and other major ligands; predicted solubilities of PGM as functions of temperature, pressure, oxygen fugacity, total chloride, and pH; and increased understanding of the possible role of supercritical aqueous solutions in the redistribution of PGE in LMI and other hydrothermal environments.